Polyhalometalates and Framework Solids: The Solvothermal Synthesis of Transition-Metal Halides

9501370 Martin This career development project describes research and education thrusts to be implemented over the next five years. It includes the development of a research program that will describe the relationship between solid-state transition metal oxides and halides, and synthetic approaches resulting from hydrothermal chemistry. The education thrusts include undergraduate curriculum development and evaluation, developing and teaching graduate courses in the inorganic division, developing a materials group meeting and seminary program, and tutoring "less-advantaged" high school students in math and science. %%% This award provides NSF support for a junior faculty member to develop a full, balanced academic career in areas of science and education of high priority. ***